Systems and Optimization Aspects of Smart Grid Challenges 2012; held, 11/15-17, 2012, Univ. of Arizona, Tucson

Research on modeling and analysis tools for management and design of smart grids has become an active area of research in several communities. This workshop will bring together ECCS and CMMI/SES communities to discuss the state of the art and identify research priorities for the future. Papers from the workshop will be published in two outlets: a special issue of the Journal of Energy Systems, and the Handbook on Smart Grids, both published by Springer.

This workshop on smart grid management and design recognizes that there is a two-way path: from research to practice, and from practical issues to important unsolved research questions. Both researchers and practitioners will contribute to the dialogue, which will inform future research priorities.